Low-Dimensional Dynamics

The Principal Investigator will perform research in the theory of
dynamical systems, mainly low-dimensional (both smooth and
continuous). He will apply analytical, topological and combinatorial
tools in order to investigate real and complex systems. A substantial
part of the project is aimed at providing bridges between real and
complex, one- and two-dimensional dynamics. Investigation of a class
of branched coverings of the plane will be continued. Semigroups of
affine maps will be investigated from the point of view of ergodic
theory. For other systems attractors, periodic orbits, rotation sets
and topological entropy will be in the center of attention.

For almost every phenomenon from Physics, Chemistry, Biology,
Medicine, Economy and other sciences one can make a mathematical model
that can be regarded as a dynamical system. Sometimes the study of
this system is extremely difficult, but quite often it can be reduced
to the study of a much simpler, low dimensional one. This project is
devoted mainly to the investigation of the properties of these types
of systems from the mathematical point of view. The results that can
be obtained are usually much stronger than in the general case and
often lead to much deeper understanding of the original systems.